Travel to Attend The Third Liblice Conference on the Statistical Mechanics of Liquids to be Held in Bechyne, Czechoslovakia, May 28-June 1, 1990

The Liblice Conferences aze international meetings held every three years and devoted to both basic research and applications of molecular theories of liquids. They are sponsored by the Chemical Physics section of the Czechoslovak Academy of Sciences. A possible counterpart in the US is the biennial Gordon Conference on the Chemistry and Physics of Liquids, which is a national and somewhat international forum on experimental work on and molecular- level modeling of dense fluids phases. The Liblice conferences, however, draw a wider segment of their audience from the European continent, including, of course, the Eastern European countries. The Third Liblice Conference will take place from May 28 to June 1, 1990 in Bechyne, Czechoslovakia, is intended to provide an effective opportunity for personal contacts and exchange of ideas, with emphasis on discussions, in addition to formal presentations. The meeting should also present a state-of-the-art picture of the achievements and challenges in both the fundamental and applied aspects of the discipline. It is an event of significant and the US presence is critically important.